Analysis of Algorithms for Simulating Complex Materials

The focus of this project is the development and analysis of numerical
algorithms to simulate materials which exhibit intricate rheological
behavior or mechanical response due to their microstructural
makeup. For example, elastic properties of particulates, molecules, or
cells of a material frequently influence the macroscopic properties.
These materials are modeled by formidable systems of partial
differential equations, and it is important to develop numerical
schemes to faithfully represent the mathematical structure of these
models. Tools from partial differential equations, continuum
mechanics, and numerical analysis, will be used to analyze numerical
schemes to simulate these systems. Past experience has shown that new
mathematical tools can lead to numerical schemes which inherit
important structural properties of these models, and that a deeper
understanding of the current schemes frequently leads to improved and
simpler algorithms.

Essentially all biological and manufactured materials exhibit complex
macroscopic behavior due to their fine scale makeup. Examples include
micro electromechanical systems (MEMS); biological fluids; ink for ink
jet devices; semiconductors; liquid crystals; and metals undergoing
plastic deformation. Predicting material response is an essential
technology needed to determine biological or physiological function;
or to design and manufacture these materials; or for the design of the
multitudes of devices which use their special properties. This
research will improve our understanding of the mathematical models and
the computational tools used to accomplish these tasks. The equations
used to model such phenomena are complex and poorly understood, and
much of the research is directed to revealing the theoretical
(mathematical) properties of these models. This work complements the
more practical approaches undertaken in the engineering community and
at the national laboratories.